NeTS: Small: Collaborative: PHY-Informed Networking (PHY-IN): Rethinking Wireless Protocol Design with the Knowledge of PHY

Traditionally, there has been an isolation of responsibilities of
physical layer (PHY) and higher layers of the network stack leading to
severe inefficiencies in bandwidth-limited wireless
networks. Remedying these inefficiencies requires rethinking and
redesigning wireless protocols such that higher layers and PHY work in
synergy. This project explores three schemes under the PHY-Informed
Networking (PHY-IN) framework. 1) Carrier Sense Multiple Access with
Collision Notification (CSMA/CN) mechanism detects and aborts
collisions, breaking away from the existing collision avoidance
(CSMA/CA) based schemes such as 802.11. 2) Constellation BAsed Rate
(CBAR) adaptation scheme jumps to the best feasible rate suitable for
a varying channel. 3) Remap scheme permutes bit-to-subcarrier
assignment for a retransmission to improve the chances of its success.
The PHY-IN framework has the potential to impact the landscape of
future wireless networking protocols. Apart from mentoring both
undergraduate and graduate students into independent researchers, this
project, involving an EPSCoR university and a research lab, will also
help broaden the participation and industry collaboration.